DISSERTATION RESEARCH: Ecosystem Consequences of Life History Strategies: Bacteriophage and Bacteria in a Denitrifying Environment

The striking abundance of bacteriophage (viruses that infect
bacteria) in the environment has prompted many questions about their
ecological and evolutionary roles in nature. Bacteriophage often
kill their bacterial hosts and such viral-caused mortality has been
shown to have important consequences for nutrient cycling and the
maintenance of biological diversity. This project will characterize
the interactions between bacteria that consume nitrate (denitrifying
bacteria) and the bacteriophage that infect these bacteria.
Denitrification is an important process in many natural environments,
as well as in engineered environments such as wastewater treatment
plants. However, the role of phage in these communities remains
poorly understood. We will determine 1) whether the interactions
between phage and bacteria in this system can be predicted from
earlier studies of much simpler microbial model communities, and 2)
how interactions between phage and bacteria affect the efficiency and
stability of the denitrification process. Improved understanding of
this denitrifying community will lead to improved functional
performance in engineered environments, as well as a better
understanding of the factors influencing the function of natural
ecosystems.